Mathematical Sciences: Convergence of Vortex Methods

The flow of an incompressible fluid can be approximated by the vortex method if effects of viscosity are negligible. It can be approximated by the random vortex method if the fluid is viscous. This research program investigates the convergence of the approximate solutions by these methods. Knowing that they converge will make these methods reliable and therefore useful. Knowledge on the rate of convergence will allow comparisons with other methods in efficieny and cost.